Collaborative Research: RII FEC: Harnessing Controlled Environment Agriculture to Secure Sustainability and Economic Growth

Extreme natural events are increasing in frequency and have had significant, negative impacts on crop production for industrial and smallholder farms. Food security, food nutritional quality, and the viability of local communities are especially threatened by these events. An educated application of Controlled Environment Agriculture (CEA) provides one avenue to mitigate pressure on communities and meet future food demand in a sustainable manner. Advances in and widespread adoption of CEA are, however, limited by several factors. Significant knowledge gaps exist in the science underpinning CEA. This project is a collaboration among community colleges, universities, tribal nations, and community organizations in three NSF EPSCoR jurisdictions. The project team brings together community members and researchers from a variety of relevant fields (e.g., economists, engineers, biologists, and plant physiologists) at all career stages to determine best practices for CEA food production and understand the local impacts of CEA.

The project will empirically determine best practices for CEA food production and quantify the impacts of CEA on local communities . The project takes a convergence science approach to tackling food security in changing environments, drawing upon a range of expertise in basic biology (plant physiology and plant-microbe interactions), applied biology (CEA and horticulture), environmental and natural resource economics, engineering, sustainability science, and the applied knowledge of local community members. The research project leverages each institution's unique and complementary research expertise and resources to accomplish the following three objectives: (1) characterize how the environment, plants, and microbes interact in hydroponic systems and affect crop yield and nutritional quality; (2) identify environmental, nutritional, and socio-economic drivers and impacts of CEA on rural communities to enhance resilience strategies via CEA; and (3) empower communities through interdisciplinary training aimed at long-term retention of a highly-skilled workforce. The project includes multiple training and mentoring activities.